Conference on the Utilization of Human Factors Knowledge in Design: an Interdisciplinary Approach

This project supports a conference in which the primary objective is to improve communication between several disciplines that do not otherwise interact much. It will bring together researchers and scholars from three disciplines: human factors engineering, environmental design, and organizational dynamics. The conference will use case studies of good and bad design as a common starting point to explore several major approaches and to find where the knowledge from the various disciplines impacts on a common problem. The conference will yield a better understanding of the state-of-the-art and indicate where the specialties involved might collaborate in future research. The papers, case studies, and a summary of the discussion will be published as a conference proceedings.